ITR: International Research on Permanent Authentic Records in Electronic Systems (InterPARES): Experimental, Interactive, and Dynamic Records

This project is a multidisciplinary, international collaborative research project aimed at developing a theoretical understanding of the records generated by the scientific, government and artistic sections. On this basis, the project will formulate and test various technology, metadata, and policy models, etc. to ensure that records created using these systems can be trusted as to content reliability and accuracy and for subsequent multipurpose use. The project will address issues related to how information technology is transforming functions of modern society, particularly in the areas of digital government, e-commerce and large-scale research efforts.